Workshop on Mathematical Modeling and Computer Simulations for Soft Materials; Fort Collins, CO

Oprea
DMS-0854518

The project is dedicated to the organization of an
interdisciplinary Workshop on Mathematical Modeling and Computer
Simulations for Soft Materials, to bring together scientists from
different fields, ranging from applied and computational
mathematics and applied physics to a variety of disciplines
relevant to soft matter physics, unified by their common interest
in search for a deeper understanding of soft materials. The
workshop is conceived specifically to identify new challenges for
theory, modeling and simulation of soft materials, and to
investigate the growing role of applied and computational
mathematics in meeting those challenges. The goal of the
workshop is to attract researchers at all levels, from graduate
students and junior researchers to leaders in the field, with
focus on breadth and diversity of the participants. Particular
emphasis is placed on the training of young participants. The
results are disseminated in a format useful to students,
scientists and engineers, through graduate courses with
interdisciplinary audience at Colorado State University, and
through the publication of a refereed Collected Lectures volume
of the invited and contributed talks.

From blood and lipid complexes, detergents, paints,
plastics, personal care products, to liquid crystals and
bio-materials, we are made of and surrounded by soft matter in
all aspects of our lives. While many properties of hard matter
are now understood, we are still on the learning curve with soft
matter, and the study of the salient features and complex
behavior of soft materials is one of the 21st century's
challenges, requiring the development of new tools, new
understanding, and an unprecedented level of interdisciplinary
collaboration. Progress in materials science achieved in the
last decades, as well as the rapid development of computer
technology, have brought scientists to a better understanding of
soft matter behavior and phenomena. Although much progress in
this area has been made in recent years, fundamental challenges
remain, such as the development of a unified scientific approach
to soft materials, and the conversion of the important scientific
discoveries into useful technological solutions. The workshop
brings together experts in mathematics, physics and engineering
to explore and develop the potential in this rich
interdisciplinary area, and generates a diverse,
cross-disciplinary, but highly cooperative research environment
that increases the accessibility of this interdisciplinary field
to both students entering the field and non-specialists. The
workshop presents a broad spectrum of current research and
prospects for future directions that provides young researchers
with an intensive learning experience and a larger perspective
beyond their individual PhD thesis topics.